1998 National Science Foundation - State/Industry University Cooperative Research Centers Symposium

9812653 North Carolina State University Batra A State/Industry University Cooperative Research Symposium will be organized by the North Carolina State University to explore the various ways of State and Federal Government interaction in Industry/University cooperation. The Symposium will be held on October 12-13, 1998 in Cary, NC. The Symposium will develop strategies of funding and funding sources of Industry/University/State/Federal Government cooperative research. A proceedings will be published. ***